Thermospheric and Mesospheric Dynamics by Optical Methods at Svalbard

This proposal is for the continuing operation of Febry-Perot Inferometer (FPI) instrument at Svalbard, Norway (78.2o N, 15.6o E). This project is a component of CEDAR campaign and the spectral observations will be used in conjunction with other data sets. The FPI technique has proved to be very important in studying new and innovative topics in the ionosphere/thermosphere polar atmospheric dynamics. The dynamics of the F-region in the cusp and polar cap will be studied through measurements of 63000 A. OI emissions will be used in the study of upper and middle thermosphere. The simultaneous observations of 7320 A OII and 6300 A OI emissions will provide a data base for the study of the dynamics of ion drag on the thermospheric wind. The solar maximum sunspot activity will provide unusual opportunities through enhanced spectral intensity for the study of the polar atmospheric dynamics.